SBIR Phase I: Bioproduction of Feedstock Amino Acids

This Small Business Innovation Research (SBIR) Phase I project aims to produce microbes capable of cost-effective production of amino acids used as animal feed supplements. Technical research herein will test the feasibility of applying cutting edge synthetic biology and metabolic engineering techniques to develop engineered strains capable of sustainable and cost-effective production of purified animal feed supplements.

The broader impact/commercial potential of this project is to provide a reliable, sustainable and safe source of animal feed supplements using biotechnology. Many plant-based animals feeds, such as those based on maize, are deficient in key nutrients needed for growth. To improve feed efficiency and animal growth rates, these deficiencies have been historically overcome with supplementation with animal waste or protein-rich plant products including soy. Recent BSE (Mad Cow Disease) outbreaks combined with dioxine toxicity (from supplementation with fish products) however, have discouraged the use of animal products. Further, supplementation with soy supplies excess, unnecessary amino acids that the animals excrete as nitrogen-rich waste, a significant environmental pollutant. Feed supplementation using purified amino acids produced via biotechnology offers a superior approach from a safety and environmental sustainability perspective.